Glycosylated B-Turns: Synthesis, Conformational and Biological Studies

Interest in glycoproteins arises from their central role in biological recognition and their highly specific antigenicity. A series of cyclic glycopeptides will be synthesized and their structural characteristics determined using circular dichroism, Fourier transform infrared spectroscopy and nuclear magnetic resonance spectroscopy. The nature of the interaction between the peptide backbone of the protein and the carbohydrate will be investigated. These studies should enlarge our knowledge of glycoprotein specificity and the role of glycoproteins antigenicity and other biological recognition phenomena.